Modeling Dynamic Processes in the Intracranial System

9626391 Lakin The investigator combines biomathematical modeling, computation, scaling, asymptotics and perturbation techniques to obtain a more complete understanding of basic physical mechanisms associated with dynamic processes in the human intracranial system. A consistent, fully time-dependent, nonlinear lumped parameter model describing interactions between pressures, volumes, and flows in intracranial space is refined, validated, and expanded to include additional physiology, such as cerebrovascular autoregulation and links to the spinal cerebrospinal fluid space. First order processes and relevant time scales are identified using scaling and asymptotic techniques. To achieve the higher resolution necessary to consider focal events, dynamic modeling within compartments and consistent linkage of sub-models with the rest of the lumped parameter system is explored. Computational methods and strategies for efficient numerical solution of the nonlinear model equations are developed. In particular, results obtained using hybrid asymptotic-numerical methods show great promise in the present context where processes occur on disparate time scales. This project seeks to develop a realistic yet tractable mathematical model for pressures and fluid flows in the human brain. Toward this end, the current model formulation is extended to include additional human physiology, such as cerebrovascular autoregulation, the mechanism which maintains the blood flow in the brain necessary for adequate oxygen transfer in the face of fluctuating blood pressure. New hybrid solution techniques are developed to carry out efficient and accurate computer simulations of pressures and flows based on the model equations. The enhanced model is also validated by comparing its mathematical predictions with physiological data. Situations involving both normal and pathophysiology are studied. This research is part of an interdisciplinary effort involving both applied mathema ticians and neurosurgeons. Although the developing mathematical model appears to have significant clinical utility in situations involving pathology, clinical aspects are not considered in the present research. The focus is entirely on increasing our basic understanding of pressures and flows in the brain. Once developed and validated, the enhanced mathematical model will be useful to researchers studying applications associated with biotechnology. For example, regulation of the vascular system in the brain plays a crucial role in conditions such as trauma and stroke. Currently, nitric oxide is emerging as a key factor in adjusting brain blood flow. The enhanced mathematical model, which includes a vascular regulation equation, can be used to study the effect of nitric oxide synthase (NOS) inhibitors on the brain. The development of NOS inhibitors is a subject of great current interest to U.S. biotechnology companies.